Credit, Insurance and Impediments to Trade in Theory and Actual Economies

This research could make significant contributions to theory, econometrics, field research and our basic understanding of formal, informal, market and programmed credit-insurance. This project uses theory, econometrics, and field work to examine how credit and insurance systems work both in theory and in actual economies. Existing theoretical models are confronted with data, consolidated and reformulated. Solutions to the models are deduced analytically, as for the work on risk-sharing, or simulated numerically, as in the models for private information. More generally, institutions and programmed credit- insurance schemes are evaluated relative to characteristics suggested by theory: risk-contingencies, monitoring, group formation, training of borrower and staff, expectations, and limited enforcement. Econometrics is used for analysis of consumption and labor with an eye toward what techniques allow one to say something definite about an economy relative to a theoretical benchmark. Field research leading to original data is used to evaluate actual risk response mechanisms and to see if impediments to trade of the kind postulated by theorists are serious impediments in practice. The economies studied include poor high risk villages in northern Thailand, using data gathered in field work, and in India's semi- arid tropics, using the standard data set gathered by the Institute for Crops Research of the Semi-Arid Tropics (ICRISAT). The work will be extended to consider national economies as a whole, e.g., Thailand as a growing economy with wide disparities in the levels and growth rates of income, using data gathered by the National Statistical Office of Thailand. The work also includes consideration of various schemes for the promotion of credit and insurance. Credit and insurance will be examined from the point of view of theory and compared with data from these actual economies. Arrow-Debreu full risk sharing or complete markets models and, where complete markets models are judged to be inappropriate, contract theory and mechanism design will be used in conjunction with the ICRISAT data for Indian villages, data for Thailand as a whole, and data on indigenous profit- sharing groups in India, Bangladesh and Thailand.